Differential Geometry and Partial Differential Equations

Abstract for DMS-0104163
PI: Richard M. Schoen

Professor Schoen is proposing to study the existence of an extremal metric
which defines the Bartnik quasilocal mass for a domain in a spacetime of
general relativity. This would yield an existence theorem for
asymptotically flat solutions of the static vacuum Einstein equations with
suitable boundary conditions. It is part of a variational approach for
constructing three dimensional geometries. Schoen's second project
involves the construction of special lagrangian, and more generally
minimal lagrangian, submanifolds in Calabi-Yau and Kaehler-Einstein
manifolds. The approach is to construct hamiltonian stationary
submanifolds by direct volume minimization among lagrangian submanifolds,
and to obtain sufficient regularity to show that they are minimal
lagrangian. Schoen's third project is to further develop the harmonic map
approach to prove the rigidity of smooth actions of lattices in semisimple
Lie groups on compact manifolds. Professor Mutao Wang proposes to study
the mean curvature flow for special classes of submanifolds of
codimension greater than one. The major thrust is to obtain stability and
regularity properties of the flow. Dr. Baozhang Yang will study singular
behavior of Yang-Mills connections in arbitrary dimension. This study will
include an investigation into the structure of blow-up sets and asymptotic
behavior near singularities.

This research project concerns the study of geometric shapes which
optimize certain physical and geometric energies. For curved spacetimes in
general relativity, there is no natural mass-energy density which can be
assigned to the gravitational field, so Bartnik proposed to measure the
gravitational mass of a region in a spacetime by minimizing the total mass
of all physical spacetimes which contain this region as a subset. This
minimal mass spacetime, if it can be shown to exist, will be a static
solution of Einstein's equations. One of the goals of this project is to
find a way to construct such static solutions, and to use them to study
three dimensional geometry. It is expected that three dimensional spaces
have natural geometries on them which are uniquely characterized by their
curvature properties. Another goal of this project is to construct certain
special surfaces in Calabi-Yau manifolds, the spaces of string
theory. These (three dimensional) surfaces, called special lagrangian
submanifolds, are analogous to soap films in that they are surfaces of
least possible area. Finally, it is proposed to study the evolution
problem for surfaces which is called the mean curvature evolution. This is
an evolution problem which moves a surface in space in such a way that its
area is decreased most rapidly. Understanding the behavior of this
evolution is important for simplifying and smoothing complicated surfaces
in an optimal way. Mathematically this is a difficult problem because the
surfaces may develop singularities such as cone points and tears which
must be accounted for.